Adding GPS to the Surveying Laboratory

This project incorporates global positioning systems (GPS) into the education of mining engineers. Two Wild GPS - System 200 units and associated postprocessing kinematic software will be purchased so that students can perform high-precision surveying. GPS will be incorporated into three surveying courses taught by the Mining Department at Montana Tech. The courses and equipment will also be available to students in the departments of geological, geophysical, and environmental engineering.